Mathematical Sciences: Coarse Geometry, Index Theory, the Novikov Conjecture, Orbifolds and Zk-Manifolds

We will study applications of Index Theory and Coarse Geometry to orbifolds and Z_k-manifolds. In particular we will carry out a preliminary investigation of the following two questions (1) Index Theory on complete orbifolds and Z_k manifolds (2) E-theoretical Index Theory for orbifolds and Z_k-manifolds